Analysis of Liquid Crystal and Ideal Gas Equations

Zheng
DMS-0908207

The investigator studies the Euler equations modeling
inviscid fluids, and nonlinear variational wave equations
modeling liquid crystals. His objective is to gain better
understanding of complicated phenomena, such as defects in liquid
crystals and shocks in fluid flows, that show themselves as
singularities or shocks in the solutions of the equations. The
methods include hard, soft, and asymptotic analysis, numerical
computation, and techniques of mathematical modeling. In the
fluids topic the investigator explores the role of symmetry in
describing the structure of solutions to shock reflection
problems for the multi-dimensional Euler equations. This bears
on the von Neumann paradox. The issue in the nematic liquid
crystals topic is to provide a quantitative as well as
qualitative foundation for manipulating the effect of defects in
electronic devices. The investigation of these mathematical
issues (1) yields new understanding regarding fluids and liquid
crystals, which are critical for the advancement of many
engineering sciences such as aerospace engineering, robot
designing, and energy efficient devices; (2) provides advanced
training for graduate students or postdoctoral researchers; (3)
enhances collaboration and cross training of faculties between
mathematics, materials science, and physics, thereby establishing
a foundation for training students in these broad areas.

The investigator studies some applied mathematical problems
in fluid dynamics (which includes the motion of air and water)
and in liquid crystal physics in materials science. Scientists
and engineers have used certain mathematical equations, called
partial differential equations, to model motion or change in a
system. Turbulence in fluids and defects in materials show up in
the form of singularities and instabilities in the solutions of
the equations that model the behavior of the systems. Even in
cases where the equations are quite simple, it is these
singularities and instabilities that often spoil accurate
numerical computations of the solutions. The investigator uses
state of the art analytical tools to study the structures of the
solutions. In the case of a compressible gas such as air, for
example, he isolates typical singularities (hurricanes,
tornadoes, shocks, etc.) and investigates their individual
structures. The result of the investigation is a clearer
understanding of the worst possible solutions, or of the
structure of solutions. Such results quantify our knowledge of
the physics and offer guidance in high-performance numerical
computations of general solutions. Results here influence
scientific areas such as weather forecasting, fluid dynamics, and
materials science, and provide critical knowledge for the
advancement of many application areas such as aerospace
engineering, robot design, and energy efficient devices. In
addition, the project provides advanced training for graduate
students and postdoctoral researchers and enhances collaboration
and cross training of faculties between mathematics, materials
science, and physics.